WCR: Evaporation and the Atmospheric Boundary Layer Over Hilly Terrain: Instrumentation, Experimentation and Simulation

The Water Cycle Research (WCR) project will determine watershed scale evaporation - a key component of the hydrologic cycle - from a concerted strategy involving field observations and numerical simulations of the field campaigns. Determination of regional-scale evaporation, particularly, over heterogeneous land surfaces remains challenging due to intermittency of the turbulent transport. Dr. Parlange, and colleagues, Drs. Meneveau and Thomas (all at Johns Hopkins University) will use passive remote sensing tools to obtain detailed profiles of temperature and humidity in the boundary layer at several nearby locations. The field observations will be simulated using state-of-the-art large eddy simulation models, in an effort to extract meaningful linkages between surface heterogeneity and mixing in the boundary layer region. The project will lead to improved modeling and prediction of watershed scale evaporation, with beneficial consequences for characterization of regional hydrological variability and change. The project is administered by the Large-scale Dynamic Meteorology program.